Spectroscopy and Photofragmentation Dynamics of Transition Metal Cation-Organic Molecule Complexes

This starter grant award to the University of Massachusetts will support the research of Professor Ricardo B. Metz. The research focusses on spectroscopy and photofragmentation dynamics of transition metal cation-organic molecule complexes. Gas-phase transition metal cations are powerful catalysts, able to activate carbon-hydrogen and carbon-carbon bonds in alkanes at room temperature. Very little is known about the adduct, a metal cation-organic molecule complex. The present research uses a dual time-of-flight photofragment spectrometer to characterize the adducts, determining the thermochemistry and bonding of the ground and low-lying excited electronic states. The information is then used to control reaction pathways in the adduct. This research will contribute fundamental insights into gas-phase metal ion chemistry toward the goal of enabling design of more effective heterogeneous catalysts.